The Calculus Companion: A Computer Laboratory for Mathemat-ical Exploration

This project will support the establishment of a computer laboratory that will be used in conjunction with a two-semester introductory calculus sequence. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of supporting projects to develop new or improved instrument-based undergraduate laboratory courses in science, mathematics, or engineering. The Instrumentation and Laboratory Improvement Program provides matching support for the instrumen- tation necessary to implement undergraduate instructional improvements at U.S. colleges and universities. In particular, the main objective of this project is to provide the laboratory environment which will facilitate the use of the system called the Calculus Companion, written by the Principal Investigators under a previous NSF grant. The computer, with the Calculus Companion, will enable students to concentrate on learning the important concepts of calculus, free them from tedious calculations, and encourage creativity through rapid feedback and experimentation.